Nuclear Response to Intermediate Energy Probes

A user mode research program will be carried out in few nucleon physics, in nuclear structure studies, and in deep inelastic muon scattering. This work will be carried out largely at TRIUMF, with reduced level of activities at FNAL and IUCF. Improved understanding of the NN interaction below 1 GeV, nuclear structure, and effective interactions are sought. Also, new data will be generated regarding the hadronization of quarks in deep inelastic muon scattering. Data will be compared to theories including the extended Bonn potential and relativistic nucleon-nucleus scattering formalisms. Simulations, detector development, data analysis, interpretation, and other related activities will be carried out at Ohio University.